Mechanisms of Olfactory Communication

The goals of this research are to increase our understanding of the mechanisms of social recognition and perception at the behavioral level of analysis. Since this particular project involves communication by odors, another goal is to increase our understanding of the functions and mechanisms of the olfactory system. Recent biological theory has emphasized the importance of the individual organism in the process of evolution, yet we still know very little about the mechanisms of individual recognition and species similarities and differences in the perception of individuals and knowledge of individuals. This project will investigate some surprising new phenomena that suggest that animals have specialized perceptual and/or cognitive strategies to discover a wide variety of information about other individuals by investigation of the complex arrays of scents that are left behind in the environment. These discoveries suggest entirely new processes of olfactory perception and consequently of neural mechanisms underlying these processes. Furthermore, characterization of these strategies should provide insight into the features or aspects of individuals that have proven to be important for animals to know about, and therefore that have been important in the evolution of their behavior and of modules in the brain to accomplish this kind of social knowledge. These experiments have importance for at least three domains of science, and may well have some practical applications in the future. First, they will be important for our understanding of animal behavior, in particular about how scent is used to regulate social interactions, but more generally about social recognition, territoriality, dominant subordinate interactions, mate choice, and competition for mates and other resources. The results may have practical implications for how to maintain healthy animals in captivity in zoos, labs, and as pets, and it could well be important in wildlife management in these times of shrinking reserves for wildlife. Second, it is important for understanding higher-order, cognitive processes in the sense of smell. Third, the results should contribute to our knowledge and understanding of social recognition processes in humans and other species, processes that are gaining increasing attention in areas such as cognitive neuroscience, artificial intelligence, machine and/or computer recognition processes, and security and law enforcement (e.g., evidence from dogs or other animals about the identity of the perpetrator of a crime).